Nuclear Theory (Physics)

This work will generalize the "vector coherent state" theory to construct representations of arbitrary operators. Applications will be made to test the Fermion Dynamic Symmetry Model in the Actinide region of nuclei and an attempt will be made to construct the full U(n) Wigner-Racah calculus.